Magnetic Field Stabilized Melt and Solution Growth of Pseudo-Binary II-VI Semiconducting Alloys

Research on the growth of pseudo-binary II-VI semiconductors will be conducted, aimed at the stabilization of convection in the fluid phase through application of large magnetic fields as a means for controlling the chemical composition of materials grown from the melt and solution. A quantitative relationship between transport processes and chemical composition of the grown material will also be established. The research program will be based on a two-tier approach of development and application of numerical transport models for solution and melt growth process applicable to pseudo-binary alloys, and Bridgman and Travelling Heater laboratory growth of II-VI alloys in the presence of applied axial magnetic fields, followed by characterization of the grown material. The transport process present in the Bridgman and Travelling Heater system will be quantitatively differentiated, and the potential for increasing the growth rate while minimizing compositional variations through a hybrid melt- solution growth process will be explored. The primary material to be studied is HgMnTe, whose properties as an infra-red detector material are, in some respects, superior to HgCdTe. The study will also be extended to growth of HgFeSe where the higher electrical conductivity of the fluid phase will allow for stronger magnetic effects on convection stabilization. The performance and yield of electronic devices based upon pseudo binary II-VI semiconducting alloys are strongly related to their chemical composition. There is a need to closely control the crystal growth process to maintain chemical uniformity. Magnetic stabilization of the transport processes occurring in the melt may be a way to produce very high quality crystals without resorting to a micro-gravity environment.